A Framework for the Dynamic Composition and Reconfiguration of Qos-Aware Next Generation Software Systems

EIA-0203872 Daniel Menasce George Mason University A Framework for the Dynamic Composition and Reconfiguration of QoS-Aware Next Generation Software Systems

In large, dynamic, highly distributed, loosely coupled, component-based systems, it is necessary to use a framework for software system composition and dynamic reconfiguration that can support the evolution of functional and performance requirements as well environmental changes (e.g., network, hardware and software failures). The proposed method by which software systems in these environments are composed of autonomous components. All components must have several capabilities (e.g., QoS negotiation, registration, QoS monitoring, etc) that are identical to all components. What makes a component unique is the set of services it provides. QoS-based approach , proposed to distribute software system composition and reconfiguration. Our method uses resource reservation mechanisms at the component level to guarantee QoS requirements at the software system level.